Clonal Molecular Evolution in E. coli

Most animals and plants get their genetic material DNA from two immediate parents, and proceeding to more distant ancestors, from a very large number of contributors. How long a stretch of DNA typically survives this recombination process without itself being broken up, over a given time? Bacteria, too owe their genetic material to many sources, although the exchange of DNA fragments begins with small pieces (as opposed to the crossing over known in higher organisms) and takes place less frequently. In any event, the same question arises. A model has been developed to serve as a framework for the analysis of the transmission over many generation of pieces of DNA in both bacteria and higher organisms. The model has worked well so far in the analysis of genetic variation in bacteria using both direct and indirect assessment of nucleotide sequences. It will, hopefully, lead to clearer insight in to the dynamics of evolution in bacteria. This has practical applications for the release of genetically engineered microorganisms: how likely is a form, designed to work within safe bounds, to pick up genes that permit it to "escape" and become virulent? It should, in addition help solve ancient questions as to whether certain organisms persist without genetic recombination indefinitely. It should also help us interpret and make long-term predictions about the likely associations of alleles at two or more nearby loci in humans. The present project is designed to get values for the following variables in the well known bacterium E. coli: the initial size of DNA replacements, the frequency of replacements in relation to the frequency of individual time, and the rate of selection of new favorable mutations that can cause a strain of bacteria to spread all over the world.